Field Monitoring Instruments for Environmental Sciences Labs with Geographic Information Systems

9451331 Cromartie This project is using field monitoring equipment that is linked to Geographic Information Systems (GIS) in a core curriculum for undergraduate environmental studies at the institution. The Environmental Studies Program (ENVL) offers a major which includes geosciences, environmental chemistry, biological resources, and management/planning. The recently revised basic courses include physical geography, ecological principles, and environmental issues. ENVL also plans to incorporate key developments in instrumentation and data analysis into the curriculum. The most important of these are GIS and the Global Positioning System (GPS).It is also expected that this project will influence undergraduate environmental studies at other colleges and universities.